Extending the Limits of Large-Scale Shared Memory Multiprocessors

The objective of this research is to substantially improve the productivity of programmers writing
applications for petaflop-scale systems by using programmer defined light-weight transactions as the
single abstraction for expressing parallelism, delineating communication, reasoning about memory
consistency, providing failure recovery, and allowing performance optimization. Transactions as the
central abstraction for designing and programming parallel systems leads to a shared memory
programming and memory coherence model called Transaction Coherence and Consistency (TCC).
Transactions simplify parallel programming by providing a way of writing correct shared-memory
programs without threads, locks and semaphores. TCC systems provide high performance communication
and synchronization with support for hardware mechanisms that can keep memory coherent and
consistent based on programmer-defined transactions.
To achieve the research objective, this research program will focus on five activities. First, the researchers
will develop new abstractions that use transactions to provide a shared memory programming model that
makes it much easier to analyze and optimize application performance. Second, the researchers will
develop performance monitoring systems that make use of transactions to detect performance bottlenecks
and to provide intuitive feedback to programmers. Third, the researchers will use the transaction based
programming model to implement compiler-based static and dynamic feedback-directed optimizations
that automatically detect and eliminate performance bottlenecks and extend the scalability of transaction
coherency to 105 processors. Fourth, the researchers will use transactions to optimize the performance of
parallel storage I/O. Finally, the researchers will develop simulation and emulation technology that will
enable us to experiment with petaflop-scale systems that support light-weight transactions before they are
available.
Broader Impacts
The broad impact of this research is to use transaction-based parallel programming to educate and enable
a new class of parallel software developers who can implement parallel software with the same facility
that sequential software is written today. Enabling parallel software development will be critical to
advancing computing performance from desktop applications to large-scale scientific and commercial
applications. While parallel processing has been essential for large-scale machines for a while, recent
announcements by Intel, AMD and IBM demonstrate that it will soon be critical for desktop applications
as well. To educate students, other researchers, and industry about the benefits of transaction-based
parallel programming, we will incorporate transactional programming concepts in the parallel
programming curriculum and make transaction-based applications available to the wider scientific
community. The researchers expect that releasing a suite of optimized transaction-based applications
along with simulation technology will be instrumental in encouraging other researchers to experiment
with and explore the benefits of transactions. To further promote the use of transaction-based parallel
programming we will organize a tutorial or workshop at a major scientific computing conference that will
cover the principles and experience of programming with transactions.